REU Site in Environmental Systems at The University of Iowa's Center for Global and Regional Environmental Research

9912191
Grassian

The University of Iowa offers an 8-week summer Research Experiences for Undergraduates